High Temperature Superconducting Films and Structures

This is a collaborative effort devoted to the study if films and structures fabricated from high temperature superconducting materials. The work includes unique fabrication methods based on physical vapor deposition and sputtering techniques. The microstructure, transport and physical properties will be determined by an unusually broad range of techniques. Experimental investigations of the superconducting state will involve macroscopic superconducting properties, the thermodynamics of the phase transition, and studies of electron tunneling. A theoretical effort synergistic with the experimental program is also present. Participants of the Materials Research Group are from Physics, Chemistry and Materials Science Departments.